REU Site: Neurotechnologies to Help the Body Move, Heal, and Feel Again

This new Research Experiences for Undergraduates (REU) Site award at the University of Houston (UH) will establish a REU Site focused on "Neurotechnologies to Help the Body Move, Heal, and Feel Again." This Site will inspire participants to pursue, with confidence, graduate education and future engineering careers with technical leadership. The REU site will pair 12 undergraduates per summer with faculty mentors from the multi-disciplinary Industry-University Collaborative Research Center for Building Reliable Advances and Innovations in Neurotechnology (IUCRC BRAIN) at the Cullen College of Engineering, for a 10-week research and educational experience in the field of neural, cognitive and rehabilitation engineering. The REU Site addresses society's current critical needs for the aging and disabled populations, leverages current research strengths in the IUCRC BRAIN, and is expected to resonate with undergraduate students and the general public, who have a rising awareness of healthcare and innovative health management devices and are interested in addressing the growing national need for effective management of chronic diseases in the aging population. Thus, this site will give students an opportunity to contribute to the development of safe, effective and affordable personalized neurotechnologies for diagnostics, restoration, enhancement, and rehabilitation of sensory, motor, affective, and cognitive functions. This goal will be pursued by supporting innovative interdisciplinary research across the multiple dimensions of brain function and behavior with the ultimate goal of improving the national health in an inclusive environment that promotes the active participation of underrepresented groups.

The program is led by an outstanding group of nationally recognized faculty mentors from the University of Houston's Industry-University Collaborative Research Center for Building Reliable Advances and Innovations in Neurotechnology (IUCRC BRAIN) to guide undergraduates in addressing grand challenges in neural, cognitive, and rehabilitation engineering. The goal of the REU is to excite, inspire, train, and nurture future undergraduates and to provide research experiences in multidisciplinary projects with clear societal impact to students who might not otherwise have opportunities for research experiences at their own institutions. The site will actively recruit students underrepresented in STEM fields and from non-research institutions. At the end of their REU experience, students will understand the societal impact of engineering, develop research laboratory skills and good engineering practices, obtain hands-on training in research tools, cultivate soft skills, learn about innovation and entrepreneurship in engineering, and participate in social activities that promote a collegial and collaborative atmosphere among student participants, while learning about the community. Research areas will include device development, neural activity measurement, big data, neuromodulation, neurorehabilitation and assistive devices, device interoperability, and human subjects trials. The ultimate goal of this REU site is to advance the national health.